POWRE: Lidar Remote Sensing of Particulate Matter: Making the Qualitative to Quantitative Transition

The objective of this research is to improve the quantification of nonpoint source emissions of particulate matter and the spatial and temporal distributions of these emissions. Nonpoint sources of particulate matter pollution remain one of the major unknowns in quantifying anthropogenic aerosol inputs to the atmosphere. Elastic lidar can overcome the limitations in vertical range and spatial and temporal resolution that hamper point sampler studies of fine particulate mater transport from nonpoint sources. However, lidar currently cannot directly quantify particulate matter concentrations. The proposed research will (1) develop a new field technique that provides a measurable boundary value constraint for lidar signal inversion, and (2) use the new method to calibrate the UC-Davis scanning elastic lidar so that the backscatter signal can be interpreted in terms of fine particulate matter mass concentration. Lidar calibration experiments will be conducted under highly controlled conditions using a field aerosol chamber. The calibration method will be extended to field conditions using real fugitive dust plumes generated during agricultural land preparation operations. Through the research to be conducted under this POWRE grant, the investigator is in the process of shifting her primary research emphasis from groundwater remediation and geochemistry to air quality and air pollution.